Colloids and Surfaces: A Theoretical Study of the Interaction Between Electrical Double-Layers

The primary objective of this U.S.-Yugoslav cooperative research project in condensed matter theory between Vojko Vlachy of the University of Ljubljana and A.D.J. Haymet of the University of California is to investigate ordering in colloid solutions, asymetric electrolytes, and the structure of polyelectrolyte solutions. Colloid solutions contain suspended particles that do not settle out and are not readily filtered. Such studies could have immediate and important applications in processes in electrochemical energy conversion and desalination. The co-investigators have complementary experience in a number of theoretical techniques relevant to the problem. Together they will perform computer simulations aimed at predicting the physical behavior of these solutions. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The grants are composed principally of Yugolsav dinars and made to the principal Yugoslav institute. Funds include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.